Multidisciplinary Laboratory Exercises for a Color Science Course

Interdisciplinary (99) Laboratory exercises for an existing multidisciplinary color science course are being created. Faculty members from physics, chemistry, psychology lighting, design and graphic art are collaborating to develop the course materials. Additionally, a faculty member at the nearby Fashion Institute of Technology (FIT) where a similar course is being instituted is cooperating in the development of the new laboratory materials and the adaptation of three exercises already being used at FIT. Students are experiencing color science from many perspectives including the psychology of color perception, lighting and set design for theatre, paint preparation and application for art, digital storage of and printing of color, the scientific concepts behind the understanding of light and energy, the interaction of light with matter and the chemistry associated with pigments. The interdisciplinary approach is enhancing student understanding of scientific concepts and broadening their appreciation of the application of these concepts to the arts.